Convention and Intentionality in Processing Simple Conversational Scripts

9362185 Proudfoot Intelligent interface agents greatly increase the suitability of computer technology for use by the broader population in performing simple, human-oriented tasks. Effective intelligent agents can be built using memory-based processing. This research involves the application of memory-based convention, intention, and domain knowledge to handle simple scripts accessible from the telephone. This Phase I proposal concentrates on recording and integrating this knowledge to provide an intelligent agent for the voice dialing telephone service. Convention and domain knowledge will be represented in conversational scripts. Interactions with the system will be stored in dynamic memory both as lexical sensory data and episodic conceptual structures. These interactions will include typed natural language and typed and keyed DTMF and silence tokens. Wherever possible, existing modules and representations will be used for processing natural language, dynamic memory, reasoning, and conversation control.